Academic Involvement For Professional Success

Project Abstract

The Academic Involvement For Professional Success (AIPS) Program targets needy students, many of whom are first-generation college students, at Adams State College (ASC), a small rural public institution in the San Luis Valley of Southern Colorado.

Scholarship money helps qualified students become role models for the other students in the pre-engineering, mathematics, and computer science areas. Fifteen (15) scholarships are awarded in year one, increasing to 20 for years 2 through 4 of this project. These selected scholars are encouraged to participate in departmental and campus-wide activities that not only expose them to opportunities designed to heighten their academic experience, but that increase their chances and desire to succeed as professionals.

The involvement of the AIPS students in these programs also provides a critical mass of students, giving non-scholarship students within the mathematics, Computer Science and Physics Department at ASC the same opportunities for development and encouragement.